Isolation and Characterization of Genes Encoding Cytokinin Metabolic Enzymes

Cytokinins are a group of plant hormones mediating cell division and differentiation. The mechanisms controlling the appropriate level and activity of cytokinins are not well understood. The long term goal of the research project is to identify regulatory elements exerting such controls in the genus Phaseolus. The approach is based on the identification of genetic differences in the metabolism of zeatin (a naturally occurring cytokinin) in embryos which led to the isolation of zeatin-specific metabolic enzymes. The enzymes are species-spedific and the products of the enzymatic reaction display high biological activity. Selective expression of such enzymes may represent important mechanism regulating cytokinin activity. Therefore, genes encoding these enzymes may be appropriate targets for molecular and physiological studies. Work proposed herein will center on isolating and analysing genomic sequences and full length cDNAs of the genes with emphasis on mechanisms regulating tissue specific expression and substrate specificity. The presence and expression of these genes in other representative dicots and monocots will also be determined. Enzymes purified by immunoaffinity chromatography will serve as antigen to generate monoclonal antibodies recognizing the substrate binding epitopes. Antibodies antigenic to zeatin epitope(s) will be employed to isolate and purify other zeatin metabolic enzymes and possibly molecules involved in cytokinin action. The proposed research is important in formulating a model regarding the genetic and developmental controls of hormone metabolism in higher plants.